CyberAI Innovation: Teaching Adversarial Causal Reasoning for Security Operations Augmented by Artificial Intelligence

This project aims to serve the national interest by preparing the cybersecurity workforce to use Artificial Intelligence wisely when protecting the systems the country depends on. Security teams increasingly turn to Artificial Intelligence to help spot cyberattacks and decide how to respond. These tools are powerful, but a clever attacker can feed them false information or trick them into the wrong answer, and a defender who accepts that answer without checking it can be misled at a critical moment. The project centers on a foundational reasoning skill: the ability to look behind an answer, retrace the steps that led to it, and judge whether each step can be trusted. The project calls this skill adversarial causal reasoning. The significance of this skill is that it may help defenders recognize failures that individual tools can overlook. Its importance for the nation is direct: stronger protection for critical infrastructure and government systems, greater resilience against advanced attacks, and confidence in using Artificial Intelligence for security without being misled by it. To build this capacity, the project plans to create and freely share course materials, a hands-on practice system, instructor support, and a fair way to measure how well students learn the skill. The project also intends to strengthen educational pathways that prepare students for cybersecurity and Artificial Intelligence careers in government and critical infrastructure sectors.

The project goals are to make adversarial causal reasoning a teachable and measurable competency and to deliver the materials and tools that support it. The central research questions are whether this reasoning skill can be taught through structured instruction, whether it can be reliably measured, and which instructional choices most improve it. The project plans to ground this work in established learning theory, treating the skill as a threshold concept, structuring instruction as a cognitive apprenticeship of modeling, coaching, and fading, and using cognitive load theory to sequence the layers. The scope spans three connected stages. The project plans first to build students' understanding of how each part of an Artificial Intelligence-enabled security system works and can be exploited, second to develop their ability to test these systems' outputs, including the explanations they produce, rather than trust them at face value, and third to let students practice the skill in a lightweight platform that runs on ordinary computers, so institutions without specialized resources can take part. A distinguishing feature, matching the Innovation Track's goal of transformative education, is that many courses focus on individual security tools, whereas this project plans to teach reasoning across the whole chain. The project intends to develop and validate an assessment of the skill and to administer it before and after instruction. An independent external evaluator plans to examine implementation fidelity, review student artifacts, and verify evidence of learning using complementary measures. The project intends to advance understanding of how this reasoning is learned and taught, and to share all materials, tools, and assessments through an open repository serving community colleges, primarily undergraduate institutions, universities, and government training programs. This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program, which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.